Doctoral Dissertation Research: Toxic Chemicals, Environmental Organizations, and the Governance of Science and Technology in the EU and the US: the Case of Nanotechnology

Toxic Chemicals, Environmental Organizations, and the Governance of Science and Technology in the EU and the US: the Case of Nanotechnology

A.Kinchy & A. Lamprou, RPI

Intellectual merit
How do differences between United States and European Union approaches to regulating toxic chemicals affect the role that environmental organizations play in the governance of nanotechnology? Since 2008, there have been intense discussions in both governments about reforming the existing regulatory frameworks for toxic chemicals to include nanomaterials. In both continents, environmental advocacy organizations have acquired a place in panels and committees addressing the topic of nanotechnology regulation. However, key differences between the two political cultures affect the ways that environmental organizations participate, generating different opportunities to incorporate their perspectives into the policy process. This project aims to identify and understand those different modes of participation and their implications for improving the governance of toxic chemicals. Two main research questions drive this study: (1) How are the governance structures and the organization of the political cultures of the US and EU expressed in the discussion and development of policies for nanotechnology and chemical regulation? (2) What are the differences in political participation, including the relative role of deliberative institutions and environmental organizations? These questions will be answered using a combination of qualitative research methods. Interviews will be conducted with representatives of various policy bodies and environmental organizations both in the EU and the US. Participant observation will be conducted in meetings, panels, and conferences. In addition, formal policy documents and environmental organizations’ reports, official web pages and blogs will be analyzed.
Broader Impact
The proposed study will provide a valuable comparative perspective for the multiple stakeholders involved in nanotechnology regulatory policy, and will be an important point of reference for discussions of regulatory harmonization development. More generally, the study will advance deliberations regarding public participation in regulatory policy development and reform for both new technologies and existing chemicals.